The Colonization of Land By Crustaceans

Wright 9808144 The onsicidean isopods or woodlice constitute the only major group of crustaceans to have colonized land, and the extant fauna shows an unusually complete representation of evolutionary radiations. At least 5 independent lineages have colonized land, and include species occupying a number of transitional habitats from intertidal to fully terrestrial. This, combined with recent advances in isopod phylogeny, makes the Oniscidea particularly suited to studies of evolutionary physiology. Research will focus on comparative physiology of four main systems, all expected to undergo major adaptive modification during an aquatic-terrestrial transition: water vapour absorption; ammonotely and alternative avenues of nitrogenous excretion; haemolymph osmoregulation; and the thermal and osmotic tolerance of embryos. Examples of specific projects include studies of membrane transport in the pleopodal gills and possible homology between its role in water vapor absorption, intertidal salt excretion, and aquatic osmoregulation. Comparative physiology within lineages provides a means to understand the preadaptive basis of such terrestrial adaptations as water vapour absorption and ammonia volatilization. Comparisons between lineages will explore how different colonization routes - from the high humidity and thermal stability of interstitial habitats to the microclimatic extremes of the marine littoral zone have both shaped and constrained the evolution of physiological systems.